Travel Awards for the 3rd International Congress of Comparative Physiology & Biochemistry; August 25-30, 1991, Tokyo, Japan

This proposal request funds to establish a travel award program for American scientist to attend the 3rd International Congress of Comparative Physiology and Biochemistry which will be held in Tokyo, Japan, August 25-30, 1991. The award program will be run by the Division of Comparative Physiology and Biochemistry of the American Society of Zoologists and administered by that Society as well.//